Research Initiation: Incremental Design Tools for Digital Systems

The focus of Dr. Beetem's work is incremental CAD tools, that is, design tools that support and take advantage of an incremental design methodology. An example is an incremental router which reroutes changed wires, but leaves the majority of the unchanged wires alone. A non-incremental router reroutes all wires even when only one is changed. This research explores both incremental tools and interaction between these tools in a design system. Of particular importance in Dr. Beetem's research is incremental simulation, which has the potential for an order of magnitude increase in performance over non-incremental simulation. Several new, incremental simulation concepts are being explored as part of this research. Prototype tools are used to design digital hardware, thereby assessing productivity of the new tools.